CAREER: A Search for Ultrahigh Energy Cosmic Neutrinos and an Improved Readout System for the AMANDA Array

9874665
Cowen
Dr. Cowen seeks funding for developing a hardware trigger system and a software analysis filter for finding electron and tau neutrino initiated particle showers in the AMANDA detector.